Nuclear Physics with Intermediate Energy Probes

A user mode research program will be carried out principally in electromagnetic nuclear physics, but with some continued effort in hadronic probes as well. The activities will include: (1) study of the nucleon electric and magnetic polarizability, measurement of the delta resonance d-state, and probes of meson exchange currents in the deuteron photodisintegration using polarized gamma rays at BNL's LEGS facility; (2) nuclear structure studies using polarized deuterons to isolate discrete isoscalar states and resonances at Saclay's Saturne facility; (3) fundamental neutral pi and eta meson production at Saturne and later at the Bonn electron accelerator; and for the future, (4) vector meson electroproduction and decay using the CEBAF CLAS detector. For the latter experiments, development work will be carried out on the data acquisition and detector control software.